Computational Methods for Inverting the Soft X-Ray Transform

The aim of this project is the mathematical development, computational
implementation, testing and evaluation of procedures for inverting the soft x-ray
transform, which has arisen recently from experimental cellular biology, but has
not previously been subjected to a rigorous treatment from the computational
mathematics point of view. The soft x-ray transform is the appropriate mathematical
model for the physical process by which two-dimensional projections are
acquired in soft x-ray microscopy (SXM), which has the unique capability of
imaging whole cells in their native environment with high resolution. The proposed
novel computational methods for inverting this accurate image formation
model for SXM are designed to improve the resolution in the reconstructions of the
three-dimensional (3D) structures from their SXM projections. It is conjectured
that such a treatment will result in improved accuracy and usefulness as
compared to the currently used heuristic procedures.

In many areas of biology, the understanding of a 3D structure provides a way
of understanding its function. Many structures, such as single molecules,
viruses, cells, etc., are too small to be viewed with the naked eye.
Microscopy has been providing images with information about
details of these structures. However, unprocessed microscopic images
present structures that are superimposed over each other, making
them hard to interpret. Combining multiple images from different directions
of the same structure by techniques of 3D reconstruction allows accurate
visualization of such structures. The understanding of 3D shapes of
structures is important in many biomedical areas, for example, in drug
design. Of the many approaches to unraveling 3D biological structures,
soft X-ray microscopy (SXM) has the unique capability of providing
high-resolution details of subcellular 3D structures in their native environment,
i.e., the whole cell. Such currently-unavailable structural information will be
important for understanding many biological processes. An example is
mitochondrial dysfunction as it occurs in human diseases, understanding
of which is important for assessing cardiovascular and nervous
system function in mitochondrial disorders.